Presidential Young Investigator Award: Cache Memory Design

Hill The long range focus of this research is on the performance evaluation and implementation of multiprocessors that are easy to program, provide orders of magnitude more computing power, and can be implemented cost effectively. The principal thrust of this work is on the design of cache memories, with specific tasks on the development of multiprocessor compilers, the implementation and semantics of address translation, the implementation of coherent shared memory in systems with multiple caches, the interaction between cache design and implementation factors, and the future effectiveness of cache hierarchies. The focus of the research during this period is on the completion of the study of cooperative shared memory, the continuation of the work on the Wisconsin Wind Tunnel, and the study of operating system modifications to take advantage of variable page sizes.